RIA: Fast Simulation of Computer Architectures Using Field-Programmable Gate Arrays as Hardware Accelerators

This research is on architectural-level simulation using field- programmable gate arrays as hardware accelerators. The goals of this research include the development of a paradigm for architectural specification that is both general-purpose and can be used to produce fast and efficient simulators, development of a graphical user interface-based entry tool, development of tools for automatic translation of an architectural description to FPGA programming information, and implementation of a trace-driven execution environment to run the simulations. The key idea behind this work is to use FPGA's to simulate a system above the gate level, at the level of events, dependencies, resources and delays. FPGA's place a limit on the size of the hardware-implemented data structures, which will be extended via a software monitor to allow virtual, unlimited-length structures. The simulation will be automatically translated from a high-level description by use of methods adapted from high-level synthesis and the compilation of C programs. To aid in entering the architectural description, a graphical user interface tool will be developed. The paradigm for system description will be based on a discrete-event architectural model of system behavior. This paradigm will be hierarchical and provide a library that takes advantage of existing fast simulation techniques for cache and processor simulation.